III: Combining Online and Offline Query Optimization for Discovery

Researchers and decision makers regularly need facts that are scattered across public datasets, websites, academic papers, and other sources. Finding and combining this information is slow, expensive, and error prone, especially for data that is written in natural language rather than stored in tables. This project will develop computer systems that automatically choose efficient and reliable ways to search, combine, and verify such information. Better systems for gathering evidence across multiple sources can accelerate scientific discovery, improve data-driven decision making, and reduce the cost of using modern artificial intelligence tools. The plan to validate the system in several different domains, including life sciences. This project will also train students to use and develop modern artificial intelligence systems, contribute software and benchmarks to the research community, and support educational activities that prepare a broad group of students to work with complex, real-world data.
This project will develop a query optimization framework for data systems that process queries over combinations of structured tables, the open web, and large language models. This framework consists of two parts: (1) offline optimization, which spends more time improving plans for recurring workloads, and (2) online optimization, which adapts while a query is running and provides feedback for future offline optimization. The project will also create performance semantic models for machine learning operators so that a data system can estimate cost, route work among alternatives while preserving correctness, and explain plan changes. For pipelines that turn unstructured data into structured answers, the project will study validation, incremental pruning, dynamic replanning, strategic information gathering, ranked result production, and a background data collation and curation agent that improves extraction, cleaning, linking, regularization, and indexing for future queries. The resulting methods will be integrated into open source data platforms, like Apache DataFusion, and evaluated with database benchmarks and scientific discovery tasks.